Specific Complexation of Metal Oxo Cations

In this project supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program, Kenneth N. Raymond of the University of California at Berkeley will synthesize various ligands designed to specifically bind with oxo-metal cations, and in particular, uranyl and vanadyl. This work has relevance to the nuclear power industry, mining technology and environ- mental monitoring and control. The strategy to be employed is based on the premise that oxo- metal cations do not fit the "billiard ball" model for other cations, and to effectively encapsulate the uranyl and vanadyl cations, the ligand design will incorporate nitrogen-hydrogen groups which are constrained in position to hydrogen bond to the oxo-group(s) of the cation(s). Characterization of the resultant complexes will include structure determination by x-ray diffraction, stability constant determination, electro- chemical studies in solution and various spectroscopic analyses.